SM: Logic Summer School for Undergraduates

The PI proposes an undergraduate summer school in mathematical logic,
to be held at UCLA in summer 2010. The goals of the summer school are
to introduce promising undergraduate students to graduate level material
in mathematical logic, including central results and research techniques; ac-
commodate a wide spectrum of experience with mathematical logic, ranging
from students who have very little experience with the area to students who
have already taken advanced courses in their home institutions; improve the
students’ mathematical problem solving skills; and encourage them to pursue graduate studies in mathematics. One such summer school had already
been held, in 2009, with great success. The proposed school will continue
the same innovative format, and build on the publicity and reach generated
by the 2009 summer school to ensure continued success.